Investigation of 3-D Magnetic Reconnection in a Laboratory Plasma

A laboratory plasma experiment is proposed to investigate the fundamental topology of magnetic reconnection regions and associated magnetohydrodynamic (MHD) phenomena. Reconnection is well established as a fundamental process of importance to understanding the geospace environment, from magnetospheric substorms and the magnetopause to solar flares. The proposed experiment will test whether reconnection is a laminar two- dimensional process, the model of prevailing theories, or whether three-dimensional structures will spontaneously arise. A very flexible double-spheromak configuration is proposed with six different operating regimes that should have quite different flow patterns, as well as variations in the initial configuration from two-dimensional (with toroidal symmetry) to fully three- dimensional. A novel element in reconnection physics that will be tested is the generation of flows along the neutral-line direction which arise for counter-helicity reconnection but not for co- helicity. Institutional support for theoretical research will simulate merging spheromaks with three-dimensional resistive MHD codes and these simulation results will be checked against the laboratory results.